Special Semester on Hyperbolic Manifolds and Geometric Analysis

The subject of geometry and deformation theory of hyperbolic 3-manifolds
has seen considerable change and advancement over the last three years.
Central conjectures have been resolved, presenting a significant need and
opportunity for results to be disseminated and absorbed and for new
directions to be evaluated. The Department of Mathematics at Wesleyan
University is holding a special semester on the topic of Hyperbolic
Manifolds and Geometric Analysis in the Fall of 2004. The department has
already invited Professor Richard Canary of the University of Michigan as
distinguished visiting professor for the Fall semester 2004. Wesleyan
faculty members Petra Bonfert-Taylor and Edward Taylor will also be
leaders and organizers of this special semester.

A centerpiece of the special semester will be a three-day conference to be
held in October 2004. This conference will gather many of the originators
of the recent exciting advances in hyperbolic 3-manifolds. It is expected
that this conference will draw many graduate students and young
mathematicians from the area, as well as established researchers in the
field. The conference will be preceded by a one-day workshop for graduate
students. The department further plans to invite a series of longer-term
visitors, to enable more sustained research activity. It is hoped that
hyperbolic geometers and geometric analysts from the area will also be
involved in the special semester on an ongoing basis. For the finale of
this special semester Wesleyan University will host a public lecture
designed to be accessible to the entire Wesleyan community.